Convex Polygonal Finite Macroelements: Closed-Form Kinematics and Exact Quadrature

CONVEX POLYGONAL FINITE MACROELEMENTS Abstract The proposal aims at developing finite macroelements without any restriction on the number of boundary vertices. To achieve the highest possible accuracy, the research quantities the spatial rate of change in shape and size with minimal discretization. Computer algebra programs will construct shape functions for two-dimensional convex polygons. Analytical differentiation of the rational polynomial Pade interpolants will yield large strain tensors. Closed form integration will lead to mass and stiffness natrices. Morphometric computation with denominator polynomials of fifty two degrees yielded encouraging numerical results. The macroelement growth model of the neuro-skull neighboring the olfactory region will be examined vis a vis the functional matrix theory of anatomy. Ready contour plots of growth distribution will be generated from clinically observed boundary profiles of biological objects e.., skulls, brains, hearts and eyes, for medical diagnosis.